The MIGDAL Experiment

Dark matter constitutes most of the matter in the universe, yet its nature remains one of the most important unanswered questions in modern physics. The Migdal effect, a quantum mechanical process first predicted by Arkady Migdal in the late 1930s, has recently emerged as a promising technique for extending the sensitivity of direct dark matter searches to low-mass dark matter particles. The effect predicts that when an atomic nucleus receives a small recoil, it can induce the emission of an atomic electron. For interactions involving light dark matter, the nuclear recoil alone often falls below the detection threshold of current experiments, whereas the accompanying electron provides a measurable signal. Although the Migdal effect has become central to the interpretation of several leading dark matter experiments, it has not yet been conclusively observed in the low-energy regime relevant to these searches. An experimental validation is therefore essential for establishing the reliability of this detection strategy. This project will perform definitive measurements of the Migdal effect in atomic targets relevant to current and future dark matter experiments. The resulting measurements will provide critical benchmarks for theoretical calculations, reducing uncertainties in the interpretation of direct dark matter searches and strengthening the discovery potential of next-generation detectors.

The experimental program builds on the Principal Investigator's leadership within the international MIGDAL Collaboration, which has conducted neutron-scattering measurements at the Rutherford Appleton Laboratory in the United Kingdom. In these experiments, neutrons scatter from gaseous carbon- and fluorine-based targets within an optical time-projection chamber (OTPC), producing nuclear recoils capable of generating the Migdal event. Previous detector research and development at the University of New Mexico demonstrated the OTPC's exceptional spatial resolution and low-noise imaging capabilities, enabling reconstruction of the distinctive Migdal topology consisting of correlated nuclear recoil and electron tracks originating from a common interaction point. Because these events are exceedingly rare, the project employs advanced machine learning and artificial intelligence techniques to identify their unique signatures within large experimental datasets. Ongoing analyses of existing data are expected to yield the first physics results, while an upgraded detector will support a third experimental campaign beginning in 2026. Follow-on measurements using additional target materials widely employed in dark matter detectors are planned through 2028. The project will provide interdisciplinary research and workforce development opportunities for undergraduate and graduate students through hands-on participation in detector development, experimental operations, data analysis, and artificial intelligence applications. By combining precision measurements, advanced instrumentation, and modern computational methods, this work will establish the experimental foundation needed to fully exploit the Migdal effect in the global search for dark matter.